From Topology to Combinatorics and Back

The primary theme of this project is to study the interplay between
topology, geometry and combinatorics. Four areas will receive
special emphasis: triangulations of compact manifolds, Cohen-Macaulay
complexes, finite linear quotients of spheres, and matroids. It has
been over 100 years since the introduction of the Euler-Poincare
formula, yet the combinatorial properties of triangulations of compact
manifolds remain largely unknown. Indeed, a complete characterization
of all possible f-vectors (which record the number of faces in each
dimension) is not known for any manifold of dimension five or more.
The possible f-vectors of Cohen-Macaulay simplicial complexes have been
known since the foundational work of Hochster, Reisner and Stanley in
the 1970's. However, the classification of face counts for important
subclasses, such as spheres and doubly Cohen-Macaulay complexes,
remains a fundamental open problem in algebraic and topological
combinatorics. Even though the representation theory of finite groups
is an extremely well developed subject, tools for computing many
topological invariants, such as Betti numbers, for the corresponding
spherical quotients are practically nonexistent. Matroids are a
combinatorial abstraction of linear independence which can be modeled
through a variety of topological spaces. Their enumerative properties
have many applications including coloring and flows on graphs,
network reliability, and the topology of hyperplane arrangements

Two recurrent and complementary ideas in mathematics are the
approximation of continuous phenomena using discrete data, and modeling
the latter with smooth objects, such as spheres or polyhedra. The
guiding principle of this project is that the combination of these two
techniques is a powerful method of approaching both situations.
For instance, compact manifolds, which are frequently presented as
solutions to nonsingular polynomial equations in several variables, can
also be examined by using simplicial complexes which are easier to
encode into a computer. In turn, this allows a deeper study of the
shape and geometry of the original space.